Collaborative Research: VINES: Track 1: NSF-SRC: SENSE-VR: Semantic ENcoding and SEnsor-Driven Communication for Privacy-Preserving Multi-Site Virtual Reality Systems

Virtual reality can support remote collaboration, education, and healthcare; on the other hand, this often requires fast connections while raising concerns about privacy of user data. These connectivity challenges are especially difficult in rural areas with limited Internet access. This project develops new methods to send only the most important information while protecting user data, enabling more people to access immersive and reliable virtual reality experiences. The intellectual merit of this project lies in advancing the foundations of efficient, reliable, and privacy-preserving multi-site immersive communication systems. The work is organized into several interconnected tasks that address communication efficiency, sensing accuracy, and privacy protection. The first task develops semantic-aware methods that identify and transmit only the most relevant information, coupled with neural enhancement methods that recover rich content features from limited received data. The second task focuses on integrated sensing and communication to track user motion and environment changes in real time, adapt communication accordingly, and enhance immersion. The third task designs privacy-preserving computation methods, including client-side filtering and secure distributed processing, in the context of multi-site virtual reality. These tasks are integrated into system-level designs that explore tradeoffs among performance, reliability, privacy, and security.

This international collaborative project brings together investigators from Portland State University, New Jersey Institute of Technology, and Linkoping University to improve shared virtual reality experiences for people in different locations. The broader impacts of this project include expanding access to virtual reality technologies for all communities and helping reduce digital access gaps in education, employment, and healthcare. By enabling efficient operation over limited bandwidth, the project supports wider adoption of immersive tools in schools, remote work, and telemedicine. The project will deliver publicly available tools, datasets, and software modules to accelerate research and innovation, and will integrate its findings into undergraduate and graduate curricula in wireless communication, distributed computing, and immersive media. Collaboration with industry partners will support technology transfer and alignment with real-world needs. The project will engage students at multiple levels through research training, internships, mentoring, and international exchange, and will disseminate results through workshops, open repositories, and publications to ensure broad and lasting impact.